The City Tech I-Cubed Incubator: Interdisciplinary Partnerships for Laboratory Integration

The City Tech I3 Incubator: Interdisciplinary Partnerships for Laboratory Integration addresses
three NSF I3 goals: broadening participation, integrating research and education, and developing a
global workforce. The incubator will broaden participation by enabling our students, the majority
of whom are underrepresented in STEM programs of study and professions, to learn science,
mathematics, and engineering technology applications in laboratories that have been transformed
to reflect the collaborative interdisciplinary approaches of advanced science and industry labs
today. The incubator will provide new opportunities to fuse STEM education and STEM research
by creating an institution-wide focus on inquiry based research as a means of learning and doing
science in labs, in faculty-led research projects outside the classroom, and in industry settings in
the New York metropolitan area, where our students will seek their futures. Finally, the incubator
will contribute to the development of a global workforce by enhancing and expanding the role of
industry representatives in communicating their needs and practices to the college and
reciprocally using the college to meet their own technological workforce needs.
The City Tech I3 Incubator will weave together dimensions of four current NSF-funded projects:
Metropolitan Mentors Network: Growing an Urban Talent Pool in New York City (STEP),
Research Experiences for Undergraduates in Ground-Based and Satellite Remote Sensing at
NOAA-CREST (REU), S-STEM Scholarships for Students, and Research, Reflect, Plan:
ADVANCE IT-START at New York City College of Technology (ADVANCE). Mechanisms of
integration are 1) creation of a multi-dimensional model of lab practice across all STEM
departments as a tool for benchmarking lab transformation; 2) creation of a cross-project matrix
for grant funded projects that charts diversity goals, outreach to high schools, research
engagement of students, involvement of industry, and significant learning outcomes; 3) a
management structure led by the provost, two academic deans, and a biologist on the faculty that
will be continuously advised by a City Tech I3Incubator Advisory Board comprising members of
departmental advisory boards and the PIs of current grant-funded STEM initiatives; 4) location of
professional development activities for the wider STEM faculty in the Faculty Commons, a
college-wide center for teaching and learning; and 5) enhancing communications by using the
cross-project matrix as a communication tool and establishing a strong web presence for all I3
activities.

The City Tech I-Cubed Incubator: Interdisciplinary Partnerships for Laboratory Integration brings together NSF/EHR awards from the ADVANCE, NSF-STEP and S-STEM programs, as well as other work, around the I3 integrative themes for broadening participation, developing a globally engaged workforce, and the integration of research and education.